Photorefractive Quantum Wells for Lightwave Technology

9414800 Nolte The objective of the proposed research is to create holographic materials from photorefractive quantum wells. The key breakthrough anticipated is the development of photorefractive quantum wells into asymmetric Fabry-Perot structures. These multi-wave interference devices will have the maximum performance possible for photorefractive quantum well technology, and will make these devices available for new femtosecond spectral holography applications that require high-sensitivity and high-speed holographic materials for use in lightwave fiber communications systems. In addition, several new designs will be demonstrated that have unique photorefractive features, such as monolithic all- semiconductor quantum well devices that considerably ease fabrication requirements, the search for stimulated backscattering in reflection-geometry devices that may achieve net gain for applications requiring optical amplification and selfpumped phase- conjugation, and fast free-carrier photorefractive devices for use with pulsed light sources. ***